Dissertation Research: Antelopes and Grasslands: Reconstructing African Hominid Environments

It has long been postulated that our hominid ancestors underwent critical adaptations to the savanna grasslands of Africa after leaving the forests, yet the presence of this savanna habitat type throughout hominid evolution has never been clearly established. This dissertation research project will infer the vegetational structure of early hominid habitats by determining the feeding adaptations of contemporaneous herbivores. The initial stage of analysis will involve the determination of correspondences between cranial and axial morphological variation on the one hand and specific feeding behaviors among living African antelopes on the other. This information will then allow for the determination of various fossil bovid dietary preferences, and in turn, the evaluation of hypotheses concerning the origin and spread of savanna grasslands. The study provides for excellent graduate training for a young professional.